Presidential Young Investigator Award

This is a Presidential Young Investigator Award proposal. The PI will examine the functional adaptation of bone to a mechanical environment. The effects of electromagnetic mechanisms will also be researched. Accurate measurement of skeletal strains will be used to help understand the control of stimuli which induce bone growth and the mechanism of adaptation itself.